Modular Chemocatalysts for Tunable and Predictable C-H Functionalization

In this project, Professor Jennifer Schomaker of the Department of Chemistry at the University of Wisconsin-Madison is addressing an urgent need for more efficient chemical methods to convert petroleum and renewable raw materials into useful building blocks for medicines, agricultural chemicals, plastics, and fuels. A key goal of this research is to develop new ways to transform common carbon-hydrogen (C–H) bonds in organic molecules into more useful carbon-nitrogen (C–N) bonds. This transformation is difficult, as C–H bonds are quite strong and most feedstocks contain many similar C–H bonds, making it challenging to selectively target a specific location. To overcome these challenges, Prof. Schomaker’s team is developing inexpensive catalysts based on silver that enable direct conversion of C–H bonds into C–N bonds in a single step and in high yields. These new catalysts can selectively modify different C–H bonds within the same molecule, allowing chemists to generate multiple useful products from a single starting compound. The reactions work in water, reduce chemical waste, and decrease reliance on costly and scarce precious metals. This work has important broader impacts for society by lowering the cost of producing medicines and other useful products while reducing waste and energy use. The project plays a significant role in education and workforce development by providing hands-on training for undergraduate, graduate, and postdoctoral researchers, preparing them for careers in academia, industry, and government. Trainees gain experience in experimental chemistry, computational modeling, data science, and scientific communication. More broadly, this research deepens our understanding of how to design catalysts for precise control over chemical reactions, insights that will help enable future innovations in sustainable chemistry and molecular design.

In this project, Professor Jennifer Schomaker (University of Wisconsin–Madison) is developing low-cost, modular catalysts for the selective transformation of C–H bonds into more valuable C–N bonds. Silver(I) complexes supported by simple N-dentate ligands exhibit diverse coordination environments that enable tunable chemo-, site-, and stereoselective nitrene transfer (NT) reactions; however, achieving predictable selectivity, particularly in intermolecular and asymmetric contexts, remains a significant challenge. This research will exploit non-covalent interactions (NCIs) between catalyst and substrate to achieve asymmetric Ag-catalyzed aziridination and C–H amidation using rationally designed quinuclidine-based BOX ligands (QT-BOX). Initial experimental and computational studies will guide the development of second-generation QT-BOX ligands incorporating directing groups and engineered secondary coordination spheres to enhance selectivity. Complementary computational investigations of intermolecular, site- and stereoselective Ag-catalyzed NT reactions enabled by a new tripyridyl quinuclidine (TP-Quin) ligand platform will identify key NCIs governing selectivity, enabling improved reaction scope and precision editing of pharmaceutically relevant scaffolds. In parallel, the project will expand into selective, tunable intermolecular carbene transfer reactions, a new research direction for the group. The synthetic utility of these methods will be demonstrated in two different areas: 1) ligand-controlled aza-Büchner ring expansions for skeletal editing of arenes/heteroarenes to densely functionalized, high-Fsp³ heterocycles, and 2) installation of enantiopure sulfonimidamides as versatile bioconjugation handles for late-stage functionalization of drug-like molecules. Efforts will integrate experimental, spectroscopic, mechanistic, and computational studies to elucidate how N-donor ligand structure influences metal–nitrene electronic structure and the dynamic behavior of the resultant silver catalysts in solution. These insights will establish general catalyst design principles for intermolecular catalyst-controlled, site- and enantioselective C–H functionalizations, including non-directed transformations that override inherent substrate reactivity. Ultimately, principles could be extended to first-row transition metals such as copper and iron, broadening the impact of this work across nitrene transfer and related C–H oxidation chemistries.